NSDL Core Integration Final Transition

This special project is supporting the transition of NSDL's core community and technical services from a centrally provided model to one that is more distributed in nature. Activities during this transitional period are designed to ensure the stability of the key technical and social infrastructure required to develop, maintain and operate NSDL, and to ensure its successful dissemination and adoption in a variety of educational settings. Such connection, coordination, and interoperability functions bring together disparate systems, practices, and disciplinary worlds of NSDL stakeholders into a larger, cohesive operational library, resulting in software, collections, processes, partnerships, policies, and standards. Appropriate documentation is being created and archived; and efforts are being undertaken to preserve existing partnerships, associated resources, community wisdom, and networks built over time so that they can be strengthened during NSDL's next phase of activity.